Investigation of the Kinetics and Mechanism for Reactions at Thin-Film Surfaces

Abstract
CHE-0307043
Deckert/Allegheny College

The kinetics of model surface reactions relevant to the adsorption of protein molecules at surfaces are examined in this RUI research project. With the support of the Analytical and Surface Chemistry Program, Professor Deckert and her undergraduate co-workers at Allegheny College examine the kinetics and mechanisms of the adsorption of substituted thiol and amine molecules at self assembled monolayer thin films. Using surface enhanced Raman spectroscopy, attenuated total reflectance infrared spectroscopy, and microbalance measurements, the kinetics of a series of probe reactions are measured. Information from these measurements is then used to develop mechanisms for these adsorption processes. The results of this work are useful for the design of biosensor surfaces.

Many strategies have been developed for the attachment of protein molecules to functionalized surfaces. The kinetics of these attachment processes, and their mechanisms, are not well understood. Professor Deckert examines model surface adsorption reactions that mimic the protein adsorption process in order to develop a fuller understanding of these attachment processes. Undergraduate researchers are involved in all aspects of this research.